CAREER: A Hardware and Software Architecture for Data-Centric Parallel Computing

Energy efficiency is the key challenge facing computer systems. To improve
performance under a limited energy budget, systems are becoming increasingly
parallel, featuring many smaller and simpler cores, and heterogeneous,
featuring cores specialized for certain tasks. Even with these improvements,
two critical challenges remain. First, without reducing data movement, memory
accesses and communication will dominate energy consumption. Thus, limiting
data movement must become a primary design objective. Second, these systems
will be highly complex, and will need powerful abstractions to shield
programmers from this complexity. Current systems are designed in a
computation-centric way that is a poor match for these challenges. Memory
hierarchies are hardware-managed and opaque to software, which needlessly
increases data movement; and runtimes lack the proper hardware mechanisms and
software policies to manage heterogeneous resources efficiently.

This research project takes a holistic approach to addressing these challenges, by
co-designing an architecture and runtime system that efficiently run dynamic
parallel applications on systems with heterogeneous cores and memories.
Redesigning hardware to be directly exploited by a dynamic runtime enables (a)
many more opportunities to reduce data movement, (b) better usage of
heterogeneous resources, and (c) much faster adaptation to changing application
needs and available resources. Three key components underlie this design.
First, a scalable memory system incorporates combinations of heterogeneous
memory technologies to improve efficiency, and exposes them to software, which
can divide these physical memories into many virtual cache and memory
hierarchies to finely control data placement. Second, specialized programmable
engines orchestrate communication among cores, accelerate intensive runtime
functions such as load balancing, and monitor how tasks use hardware resources
to guide runtime decisions. Third, a hardware-accelerated runtime leverages
this novel architectural support to place data and computation to minimize data
movement, use the most suitable core for each task, and quickly respond to
changing application needs. This runtime targets a high-level programming model
that lets programmers express fine-grained and irregular task, data, and
pipeline parallelism. These techniques build on an analytical design approach
that makes hardware easy to understand and predict, and enables runtimes to
navigate multi-dimensional tradeoffs efficiently.

If successful, this project will make heterogeneous systems more efficient,
more broadly applicable, and easier to program. It will especially benefit
applications with dynamic and fine-grained parallelism, advancing key emerging
domains where these workloads are pervasive, such as graph analytics and online
data-intensive services. In addition, the infrastructure developed as part of
this project will be publicly released, enabling others to build on the results
of this work.